Meeting End-To-End Deadlines in Distributed Real-Time Systems

A comprehensive set of algorithms is developed for end-to-end scheduling in distributed real-time systems of different sizes, complexity, and dynamics. These algorithms are thoroughly analyzed and evaluated in order to determine their capabilities and limitations. In addition, rigorous design rules and selection criteria governing their use are derived. This should help to develop a basic framework in which strategies for end-to-end scheduling, load balancing, concurrency control, and synchronization are integrated to enhance the responsiveness and robustness of the overall system.